Bringing CoCoRaHS to the Central Great Plains: An Informal Science Education Project for Rural Communities

CoCoRaHS or the Community Collaborative Rain and Hail Study builds on previously funded NSF research on precipitation patterns in the western portion of the US. This award will expand the current citizen science efforts to include those living in the Great Plains including Eastern Colorado, Western Nebraska, Northwest Kansas and Southeast Wyoming. Participants gain experience in data collection and analysis while working with scientists and contributing to a national research study. CoCoRaHS volunteers will learn about the impact of regional weather patterns on agriculture, water resources and environmental quality while collecting rain, hail and snow data. Participants are also invited to take part in other activities to build on the research experience including a series of seminars, field trips and workshops. The project will result in the development of the following materials: graphic depictions of data using ARC-GIS software, a teacher curriculum, an upgraded website and a quarterly newsletter.